Engineering Faculty Internship: Transition from Batch Mode to Real Time Planning in Make-to-Order Printed Circuit Board Manufacturing

The objective of this faculty internship is to extend the current knowledge base and technology involved in transitioning from the existing batch mode of planning to real time planning of make-to-order printed circuit boards (PCBs). The main concept behind this transition is that any event will be passed directly to a server, which will be a continuously running scheduling processor, instead of to a database. The schedules will be stored and updated utilizing an efficient form of computer memory management termed bitmapping. Industrial collaboration will allow the development and testing of a real time planning algorithm using a Novell local area network (LAN) netware loadable module (NLM). Testing will be based on planning knowledge from some of the major US PCB manufacturers who are clients of the industrial sponsor and are currently using the batch mode planning system.